IUCRC for Using Design Metrics Feedback During Software Development

9416395 Zage This project funds an Industry/University Cooperative Research Fellowship in which Drs. Wayne and Delores Zage of Ball State University will conduct a study "Using Design Metrics Feedback During Software Development." The researchers are an integral part of Purdue University/University of Florida's Industry/University Cooperative Research Center for Software Engineering. This study is to be conducted at and cost shared by the Northrop Corp. The research will evaluate the performance of the design metrics developed at Ball State University as it is applied to ongoing software development in a controlled industry experiment. The researchers are nationally recognized experts in their field and well qualified to perform this project. The Program Manager recommends Ball State University be awarded $15,000 for one year for this project.